Dynamic Model Selection Under Time Constraints

This is the first year of a three year continuing award. This research addresses the problems of modeling at the appropriate level of detail for the purpose of controlling physical or biological systems under time or computation resources constraints. The research is to develop, implement and test a method of dynamic selection of models for use in real-time applications. The PI's first develop and organize multiple simplifications of a detailed (base) model of the domain by applying combinations of domain-specific simplifying assumptions. They create an explicit representation of these assumptions and develop methods to reason dynamically with the assumptions to find the simplest model with valid assumptions. The PI's test the hypothesis that the simplest model with valid assumptions is optimal according to a decision-theoretic definition of optimality. The system is implemented in the domain of human cardiopulmonary physiology, with the control task of finding settings for a ventilator (mechanical breathing device). The research will provide improved methods of applying complex models in time-critical applications, enable the use of previously intractable models in real-time applications, and merge numeric simulation and control methodologies with formal decision theory. //